Nansen and Amundsen Basins Observational System (NABOS) Mooring Design and Cruise Support

The International Arctic Research Center (IARC) at the University of Alaska Fairbanks has requested the Woods Hole Oceanographic Institution’s (WHOI) Mooring Operations and Engineering Groups (MOE) expertise in the design of nine under ice subsurface moorings being deployed in the Arctic in the summer of 2021 for a period of two years. MOE personnel will also provide mooring operations expertise and will participate on the deployment cruise being staged from Kirkenes, Norway. WHOI will define the science and instrumentation requirements prior to the construction of the moorings by taking into consideration environmental factors (such as ocean currents and sea ice). Following the design phase, the UAF and MOE teams will oversee the construction of the moorings.